Early Career: Technician Support for a Field-Based Research Program in Ecohydrology

1462169
Emanuel

This grant will support a field and laboratory technician who will be enagegd in NSF funded research projects focused on the interaction between physical hydrology and terrestrial ecosystem ecology. Some of these questions include: How do topography and vegetation jointly influence runoff generation in headwater catchments? What are key coupling points between water and carbon cycles in complex landscapes? and What factors determine the vulnerability of freshwater-dominated coastal ecosystems to surface water salinization?

The technician will contribute to ongoing efforts to mentor students through participation in research and to broaden participation among groups underrepresented in science, technology, engineering and mathematics (STEM) and will directly support an early career Native American geoscientist.

***